Curriculum Enhancement Through Atomic Absorption Spectroscopy

The college is establishing a series of science intensive curricula aimed at students with average academic ability and an interest in science or engineering. The curricula are designed to facilitate students entering the workforce as skilled technicians after 2 years of postsecondary education and an industrial internship. Alternatively, students can continue on to complete their baccalaureate degree. This grant is aiding in the implementation of a Chemical Technology curriculum, while enriching chemistry laboratory courses for both vocational and transfer students. The college is acquiring an Atomic Absorption Spectrophotometer to complete the inventory for the Chemical Technology curriculum. Chemical technicians graduating from the college master the operation of the following instruments: FTIR spectrophotometer, gas chromatograph, atomic absorption spectrophotometer, high performance liquid chromatograph, uv/vis spectrophotometer, electrophoretic apparatus, ISE meters and, general laboratory apparatus like balances, ovens, and incubators.